Theoretical Particle Physics, Astrophysics and Cosmology

PI: Glennys Farrar
Institute: New York University

The research program will address questions that are fundamental to our conception of the universe: What is dark matter composed of? What is the dark energy? Do dark matter and dark energy interact with each other? Why is the abundance of dark matter about equal to that of ordinary matter, when in conventional theory they are unrelated? Indeed, why is there any ordinary matter left in the Universe at all? Are there more dimensions than the 3 we live in, and what can we say about their structure and properties? In particular the PI will develop a semi-analytic cosmic ray shower simulator (SENECA).
A new candidate for dark matter (the H-dibaryon) which is based on the existence of light gluinos will be studied. The research will include a detailed and intensive examination of the consequences of coupling dark matter (DM) and dark energy (DE) through a dependence of DM mass on a quintessence field. The PI will also examine models that can generate an asymmetry for standard model baryons without baryon number violation and investigate whether one can identify DM as mirror ordinary matter on a different brane.